Doctoral Dissertation Research: Translating Indigenous Rights: A Multi-Level Study of Prior Consultation Law

Prior consultation policies,which mandate that indigenous communities affected by a proposed law or project are consulted before the activity begins, have proliferated in recent years across many sectors and locations but can be traced back to international indigenous rights law. This research examines how international indigenous rights laws get strategically transformed or “translated” from the international legal sphere to differing local political contexts. This approach goes beyond considering policy in terms of legal interpretations, implementation barriers, or compliance failures, to examine the continuous processes of transformation it undergoes as a result of the strategies of particular actors. A deeper understanding of what makes policy effective (and what “effective" means to different groups of people) is prudent in an era when the international legal sphere is frequently looked to for solving intractable problems like climate change, poverty, and biodiversity loss, but which relies on national and sub- national implementation into diverse social and ecological contexts.

Building on anthropological and legal studies of indigenous rights, this research applies a “policy translation” framework to indigenous rights law, bringing a new theoretical and methodological approach to examine this body of law. Policy analyses, archival research, and ethnographic methods will be used to trace how Peru’s prior consultation law (and the international law from which it was derived) has been translated in writing and in practice, from the international, to the national, to the subnational levels during one year of fieldwork, split between Lima and four field sites in the Peruvian Andes where prior consultation has been implemented in the mining sector. By conducting interviews with a wide array of actors involved in and impacted by this law, analyzing archival records of media, financial, and legal data to elicit the wider context surrounding the creation and implementation of the law, and conducting mapping exercises to spatialize the outcomes of the law in each of the four sites in the Andes, the researchers will examine the strategies and spaces used by various actors (indigenous groups, businesses, NGOs, and government agencies) to shape policy meaning, practice, and outcomes according to their interests. Ultimately, this research will shed light on the ways that different actors leverage their power over the legal apparatus, an issue that has broad relevance to other legal contexts. The proliferation of prior consultation policies in diverse political and ecological contexts across the world and the growing relevance of international laws makes this research timely and compelling.